Borough of Manhattan Community College S-STEM Scholars' Program

The Borough of Manhattan Community College S-STEM Scholars Program is awarding scholarships to full-time Computer Science, Engineering and Mathematics students who demonstrate both academic potential and financial need. Special emphasis is being given to recruiting from underrepresented groups. Scholars are being organized into active learning communities, which are being supported by a wide range of expanded and individualized academic support services including mentoring, academic advisement, tutoring and research opportunities.